Mathematical Tools For Imaging Reconstruction

9971151
Grunbaum

The principal investigator will continue his work on a few loosely related
areas, including diffuse tomography, the phase problem in X-ray
crystallography, some relations between the Darboux process applied to
orthogonal polynomials and the electrostatic interpretation of their zeros,
and a number of specific problems related to the bispectral problem. This
last one is an area that he initiated about a decade ago starting from a
concrete problem in medical imaging. This field has made contact with
several unrelated fields in mathematics, ranging from wave propagation,
commutative rings of differential operators, etc.

The principal investigator's work continues to be centered at the
crossroads between "inverse problems" in areas of biomedical interest
including X-ray, Magnetic Resonance and Optical tomography on the one
hand and a number of mathematical developments in areas like
mathematical physics and signal processing. The research program is a
two-proned approach aimed at identifying important areas in medical
imaging that are ripe for improved mathematical treatment. In certain
cases this has given rise to new mathematical developments that should
eventually find useful applications. This work has proved useful in other
inverse problems arising for instance in radar detection, noninvasive
evaluation, etc.